Arctic Observing Network Design and Implementation (ADI) Task Force Writing Workshop

This proposal supports the attendance of 15 participants and administration of their travel to the Arctic Observing Network Design and Implementation (ADI) Workshop, to be held in Boulder, Colorado between June 27-29, 2012. The workshop is being convened to finalize a review of available network design information and specific case studies. Attendees will produce a document which is intended to synthesize the past three years’ effort of the ADI Task Force and inform interested funding agencies currently supporting the Arctic Observing Network. The final document will be distributed by the end of July 2012.